Coding and Modulation for Space-Time Systems

Wireless communication systems must inevitably deal with the
severe effects of fading, the phenomenon whereby received signals fluctuate
over very wide ranges as the propagation environment changes in time.
Various forms of diversity are commonly employed to combat the effects
of fading. In various scenarios, it is possible to achieve diversity by
transmitting a signal that is redundant in time or frequency, by using
multiple transmit antennas and/or multiple receive antennas. While techniques
for achieving time diversity, frequency diversity, and space diversity
through multiple receive antennas are well known, developing techniques
for achieving diversity through the use of multiple transmit antennas is
a relatively new area which is currently of great practical and theoretical
interest. This research involves the design of improved modulation and coding
techniques for the so-called space-time systems, i.e., those with multiple
transmit antennas. One main goal of this project is to maximize improvement
in what is in some sense the worst case scenario where the number of receive
antennas is either one or a very small number and also where the channel is
fading in a very slow (i.e., quasi-static) manner. In this environment,
transmitter diversity and possibly frequency selectivity may be the only
sources of potential diversity.

This research studies the potential of improving on existing techniques
by overcoming two flaws that plague many existing or proposed space-time
systems: 1) Space time codes have difficulty providing both diversity and
significant coding gain, Many space-time codes must use up all their redundancy
to provide diversity and actually provide little or no coding gain. By
splitting the jobs of providing diversity and coding gain between either two
separate codes or between the coding and modulation formats, this research
produces a more effective space-time communication system. 2) Space time codes
which promise significant coding gain often do not produce it in a quasi-static
fading channel (QSFC). The currently accepted design rules for space-time
codes are in fact shaky when applied to a QSFC. By forming a more solid
foundation for designing codes for QSFCs, this research produces better design
criteria and ultimately better space-time coding techniques.